ITR: Design of Novel Receiver Algorithms for OFDM Incorporating Realistic Indoor Channel Modeling

The explosive demand for communication services, fueled by the
rapid growth in the areas of mobile communications and the
Internet, has generated and will continue to generate immense
research efforts in the area of wideband wired/wireless
communications. To accommodate the demanding future applications,
systems must be designed to perform joint equalization, detection,
decoding and estimation of the unknown and possibly time varying
channel parameters, while maintaining reasonable complexity (and
low cost). Motivated by these requirements, and using an OFDM
indoor wireless system as a design example, two main directions
are investigated in this project.

In the first direction, receiver algorithms are designed for
iterative, joint equalization, detection and decoding, that
address the critical issues mentioned above. The investigation
starts by identifying a powerful model that encompasses all the
salient features of the OFDM transmission system. Data detection
in OFDM is then stated as a problem of two-dimensional (2D) data
detection in the presence of localized, 2D intersymbol
interference, non-linear distortion, and unknown and time varying
parameters. We then identify fast, joint data detection and
channel estimation schemes which are utilized as building blocks
for powerful adaptive iterative detection receivers. Unlike the
entire iterative receiver, these sub-blocks are optimal in a
precisely defined sense, and can be implemented with
less-than-exponential complexity with respect to the data sequence
length.

The second direction is the development of a unified framework for
the analysis of the transient and steady-state behavior of
adaptive iterative algorithms. In the proposed study, the receiver
is assumed to have no explicit knowledge about the channel
parameters, other than their statistical description. The minimum
signal-to-noise ratio required for convergence to error-free
transmission, and the optimal allocation of power in pilot and
coded symbols, are some of the issues that are investigated for a
wide variety of adaptive iterative receiver architectures.
Regarding propagation modeling for the indoor environment, the
approach followed herein is a direct divergence from the classical
approaches that include either measurements, or the
well-established ray-tracing techniques. In particular, ultra-fast
algorithms for the numerical solution of the electromagnetic
problem are developed. These algorithms result in almost exact
solutions that can be evaluated with complexity comparable to the
less accurate ray-tracing techniques.